Tribal College Rural Systemic Initiative- Development Grant

Blackfeet Community College (BCC) proposes to examine past activities of Phase I, look at
what was learned, and continue into Phase II as a development grant. Phase I efforts in
developing and maintaining a comprehensive and sustainable systemic reform effort in
mathematics, science, and technology fell short of expected activities and BCC has learned
from its past activities.
BCC will utilize the lessons learned from Phase I activities and will continue to promote
the NSF drivers while at the same time seek current strategies to assist in their effort
to have a comprehensive program that will catapult Blackfeet Indian reservation and its
students to meet the National standards. Special emphasis will be placed on a holistic
approach to community reform using RSI activities as a springboard for a comprehensive
reform effort.

There are fourteen K-8 schools (1,814 students) and two high schools (563 students) in the
service area of BCC. BCC will work with eight of these schools in a comprehensive effort
for systemic reform, impacting 1,777 (98%) in the K-8 area and 563 (100%) of the High
School students. BCC will work with mathematics and science teachers and administrators
through existing channels established during Phase I in setting goals and objectives for
Phase I implementation activities. A task force made up of reservation school
administrators will be chaired by the BCC college administrator and will include all
school administrators of schools served. A mathematics task force will be developed and
will include area mathematics instructors (recommended by school site administrators) and
BCC mathematics instructors. It is this group that will examine, recommend, and assess
efforts in mathematics. Another task force in the sciences will be formed composed of all
service area science teachers and BCC science instructors. They will work closely with
the science curriculum of area schools and look at how they are involved in the overall
reform effort.

The Phase II developmental efforts will continue to promote systemic reform in math
and science education at two school districts consisting of six different school buildings
located in rural Montana. The utmost goal of the program is to develop and maintain a
population that is prepared to meet the needs of a technologically competent work force.